The Adsorption and Reactions of Methyl Radicals on Solid Surfaces

This research project, supported by the Analytical and Surface Chemistry Program, is concerned with the surface chemistry of small alkyl radicals on well characterized surfaces. Professor Stair has developed a novel radical source which is used to produce and deposit alkyl radicals on well characterized solid surfaces of molybdenum and iron. The oxidative and radical coupling chemistry of the adsorbed species will be explored using a variety of ultra-high vacuum spectroscopic probes. Studies of the detailed dynamics of radical adsorption will also be carried out. %%% One approach to the understanding of the complex surface chemistry of hydrocarbon catalysis is to investigate the detailed surface chemistry of possible reaction intermediates. This research project uses this approach by preparing radical alkyl intermediates and depositing them on a well characterized surface. The chemistry of these intermediates is then examined, providing a detailed understanding of the mechanism of hydrocarbon catalysis.